Cyberinfrastructure Software Sustainability and Reusability Workshop

National Science Foundation
Office of Cyberinfrastructure

Proposal # 0829462
PI name Bradley Wheeler
Institution Indiana University
Title “Cyberinfrastructure Software Sustainability and Reusability Workshop”

Project Summary

This workshop proposal targets an examination of sustainability and reusability of software developed, supported, and used by the NSF community. Specifically, workshop goals include: examination of current software evaluation and adoption models by labs and virtual organizations; examination of long-term sustainability models; and mechanisms for supporting sustainability via funding organizations, open source, and commercialization. White papers on these topics and others will be solicited of the community in advance of the workshop. Results from the workshop will be documented, as well as recommendations to NSF. Intellectual merit is identified as the exploration of this topic and a resulting deeper understanding of how we as a country of scientists and educators deal with sustaining community sourced software over the long term. Broader impact is multi-dimensional: in addition to the potential transformative nature of resulting actions and strategies by both the community and funding agencies, the proposal will make explicit funds available for HBCU and MSI participation.